STTR Phase I: Full Spectrum Conjugated Polymers for Highly Efficient Organic Photovoltaics

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This Small Business Technology Transfer Phase I project will demonstrate the feasibility of forming full spectrum highly efficient polymer solar cells from newly designed conjugated and potentially variable bandgap polymers that harvest visible through infrared light. The novel materials will be forged by incorporating Silole and donor-acceptor-donor moieties into the backbone and are expected to increase light harvesting and carrier mobility, and hence short circuit current output potentially by a factor of three over the state of the art. The key innovations of this work will also optimize energy levels to reduce voltage loss and further optimization of device structure and film morphology is expected improve fill factor. The primary objective of phase I is to determine the feasibility of forging full spectrum and high carrier mobility conjugated polymers that achieve highly efficient solar conversion. An ancillary goal of this work is arrive at an understanding of photophysical processes and device physics that will lead to optimal device fabrication during phase II.

The environmental, societal and economic impacts of this technology are enormously broad. The ensuing abrupt drop in energy costs stemming from full spectrum harvesting promises to deliver stability and urgently needed relief to today's volatile oil based global economy. While photovoltaic (PV) production is already the fastest growing source of energy across the globe, the planned efforts of this STTR project are expected to disruptively reduce the projected cost of photovoltaic production in 2010 by a factor of 3. At a forecasted production cost of $0.70 per Watt, this research will demonstrate a technology that is competitive with the cost of electricity that is produced from fossil fuels. This technology will provide clean and cost competitive energy for home and industrial power, vehicle propulsion, consumer electronics, remote sensing, security, and an endless list of existing applications that currently rely on energy from fossil fuel.